CSR--PDOS: Fulfilling the Promise of Transactions in Multithreaded Systems

All major microprocessor vendors are now committed to multi-threaded and
multi-core processors, which make thread-level parallelism visible to
the application programmer. A growing consensus holds that traditional
lock-based programming techniques are inadequate to program these
machines, and that transactions are the most promising alternative. The
central goal of the project is to chart a viable transition path to
future transactional systems. This goal encompasses work on (1)
semantic extensions, including exceptions, conditions, nesting,
irreversible operations, and interoperability; (2) characterization and
minimization of the costs of software transactions; (3) development of
hardware assists; and (4) fast ad-hoc nonblocking data structures that
interoperate with transactions. Work on these fronts spans the
compiler, run-time system, OS kernel, and high-level hardware
architecture, with an emphasis on the run-time level. Expected impacts
and outcomes include a high-performance, open-source, library-level
implementation of transactional memory; high-performance nonblocking
data structures for standard language libraries (examples have already
been adopted for the standard release of Java); a deeper understanding
of transactional semantics, and of the relationships among transactions,
locks, and nonblocking data structures; new hardware implementation
techniques; and appropriate compiler support. More broadly, a
comprehensive roadmap for transactional memory holds the promise of
extending Moore's Law and the IT revolution through the coming decade,
with wide-ranging benefits for science, commerce, government, and
quality of life.